Architectural, Parallelism, and Resynchronization Issues in Sequential Decoding

The research aims to improve the architecture of sequential decoders of both the ZJ Stack and Fano types, to exploit code parallelism for increased decoder speed and performance, and to establish an objective basis for the jump-ahead resynchronization method often used in continuous sequential decoders. Pipelining, branch order and metric increment mechanizations, and a unique "file-drawer" memory for ZJ decoders are among the architectural issues to be investigated. A computer search using the San Diego Supercomputer will be made to find good convolutional codes of rate m/n where n is moderately large and not necessarily relatively prime to m. The resultant codes will be used in an investigation of decoder features that permit this intrinisic parallelism to be exploited. Acceptable compromises in providing partial branch metrics and rank order for decoders operating in a multiple-branch-per- node mode will be studied through an anlysis of the impact on the exponental bound parameter, RO. To determine the optimum size of jump, the resynchronization method will be studied by simulation using a specially construted trial encoder circuit board. A related analysis of the optimum constraint length of decoders will be made based on te tradeoff between undetected error probablility and the error event span during resychronization. The research will result in improved performance of this important constituent of many modern telecommunication systems.